REU: Behavior, Ecology and Genetics of an Apparently Communal Halicine Bee

This research will investigate the social organization of an apparently communal halictine bee, Lasioglossum (Chilalictus) erythrurum. Three approaches will be employed: (1) laboratory studies involving direct observation of behavior among females in observation nests, (2) ecological studies of natural nest aggregations, and (3) isozyme studies of the genetic relatedness among interacting females (intra-colony relatedness). This will be the first such study for any apparently communal hymenopteran. The results will provide a unique opportunity to study the evolution of alternative forms of primitive social organization in the Hymenoptera. Dr. R. H. Crozier will provide essential laboratory space for the behavioral aspects of the research and collaboration for the genetic aspects.